SGER: Preliminary Research on Immunity-Based Computational Techniques

The PI will conduct a preliminary investigation of immunity-based computational techniques to pave the way for more complex studies of this subject in the future. The ultimate goal of this research is to develop computational techniques inspired by the natural immune system for solving real-world science and engineering problems. The natural immune system is a distributed novel-pattern recognizer which uses intelligent mechanisms to detect a wide variety of antigens (novel patterns). From the computational point of view the immune system uses learning, memory, and associative retrieval to solve recognition and classification tasks. The immune system is a subject of great research interest, not only in the hope of finding cures for many diseases but also as a means for understanding its powerful information processing capabilities. In the current project the PI will investigate immunological principles, explore the underlying concepts and mechanisms, and take initial steps towards the development of intelligent computational techniques for solving problems in the field of science and engineering.